CISE Research Instrumentation: Laboratory for Design Methodologies of Embedded Systems

9422095 Dutt This award is to purchase equipment for investigating methodologies for the concurrent design of embedded electronic systems involving both hardware and software, where teams of designers concurrently refine the initial product specifications into working prototypes. The research will adapt, evaluate and extend novel methodologies used in the traditionally distinct domains of hardware and software, and will attempt to quantify metrics for design cycle reduction, provide concurrent design process feedback and tune the design methodologies based on the domain of the application. Another important goal of the research is to investigate new paradigms for technology transfer between universities and industry with the objective of increasing the long-term impact of the technology transferred. Specifically, the research will 1) evaluate the proposed methodologies on realistic design examples provided by the industry, 2) increase university-industry interaction through on-site industrial visitors working closely with university researchers to test the proposed methodologies, and 3) facilitate better communication between university researchers and industrial partners through the use of multimedia platforms. ***